Cyber Security Economics and Incentives Workshop

This award supports two workshops: the Workshop on Economics of Information Security (WEIS) and the Workshop on Cybersecurity Incentives (WOCI), to be held consecutively at George Mason University. These workshops will facilitate better understanding of how economic factors affect the deployment and use of technical cybersecurity measures and how incentives of various kinds might be influence improvements in the security of cyberinfrastructure.